MOREnet Expansion Phase 4

9312155 Mitchell This award adds three higher education institutions to the MOREnet state network. The new institutions connect to a hub located at the University of Missouri at Columbia. Faculty and students at the institutions will benefit from access to the resources of the Internet, including libraries and supercomputers. In addition, they will be able to communicate and collaborate with colleagues at other campuses in pursuit of research and educational projects. The award provides partial support of the project for two years. ***